Implementation of the Harvard Core Calculus at Stony Brook

9352843 Phillips The Harvard Consortium Curriculum is being implemented throughout the Calculus courses, from beginning through Multivariate, in the context of a thorough revision of our first-year and remedial classes. This involves adapting the Harvard curriculum to meet the needs of a diverse student population, who fall into three categories: the 1600 students a year who take the first term of the Precalculus/Calculus sequence, for whom the precalculus end of the curriculum needs to be expanded; the 900 who take either the slow- stream or the mainstream Calculus, who can use the curriculum essentially in its present form, and a smaller number of well- prepared students, who took some Calculus in high school, and would benefit from enrichment material to supplement the more routine sections of the curriculum. Undergraduate majors interested in secondary teaching are being recruited to participate in workshops and seminars offered as part of the project and to gain teaching experience in the revamped precalculus and calculus courses.